SBIR Phase I: Automated Robotic Disinfection System (COVID-19)

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) project will improve infection control in public transportation. There is currently no high-speed, autonomous method capable of decontaminating commercial aircraft and public transit vehicles. The proposed technology rapidly inactivates viruses and other potential biothreats in an automated robotic disinfection system.

This SBIR Phase I project proposes development and scaling of a system using radiofrequency (RF) directed energy to activate a benign chemical, producing biocidal reactive oxygen on surfaces. Preliminary studies of MS2 bacteriophage viruses have demonstrated inactivation of 99.999999% of MS2, despite being 7-10x more difficult to inactivate than SARS-CoV-2. The proposed system consists of four subsystems: application sprayer, RF, robotics, and power. This project will optimize and integrate these subsystems. A key technical objective is identifying the power density threshold and appropriate frequency for virus inactivation without negative interactions with electronic equipment.